Acquisition of a High Field NMR Spectrometer

This award from the Chemistry Research Instrumentation Program will help the Department of Chemistry at Trinity University acquire a 300 MHz NMR spectrometer which will be used in research investigations in the following areas of chemistry: (1) highly enantioselective transformations catalyzed by chiral dirhodium(II) carboxamides; (2) anti-aromaticity and hypervalency in hydrocarbon dications; and (3) site directed photochemistry: cycloadditions to anthracene derivatives perturbed by electronic and strain effects. Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometry is essential to chemists who are carrying out frontier research. The results from these NMR studies are useful in the areas such as polymers and catalysis, and in biology.